Vibrational Strong Coupling on Non-Statistical Reactions

Researchers from the University of California, San Diego are investigating how the interaction between light and matter can be utilized to manipulate chemical reactions. Traditional chemical reactions are often limited by classical thermodynamic principles, making it difficult to selectively drive specific molecular pathways. The research team will address this constraint by placing molecular systems inside specialized microscopic optical cavities, where collective molecular vibrations strongly couple with confined light fields to create hybrid light-matter states. This unique experimental methodology targets a special class of reactions, which proceed so rapidly that traditional energy equilibration fails, leading to unthermalized intermediates. By using these optical cavities to accelerate energy redistribution, the team aims to alter the reaction outcomes and achieve predictive control over product selectivity. Their discoveries could provide a new mechanism for chemical control, as well as advance emerging quantum technologies that exploit coherent light-matter states. The project will also provide research opportunities for graduate students, as well as introduce undergraduate and pre-college students to frontier spectroscopy research through hands-on laboratory experiences, complemented by a new educational podcast designed to inspire the next generation science workforce.

This research project provides a detailed exploration of vibrational strong coupling (VSC) to establish a bottom-up mechanism for controlling condensed-phase reactions. The central focus rests on testing the hypothesis that VSC can accelerate or decelerate intramolecular vibrational redistribution (IVR) within short-lived, energized intermediates before they cross a reaction barrier. Three coordinated research thrusts will execute this investigation. First, the group will design and fabricate confocal microcavities with small mode volumes to significantly enhance vacuum electromagnetic fields and exceed the stringent delocalization threshold required for liquid-phase applications. Second, quantitative assessments of reaction selectivity for both thermally-activated and photoactivated systems will be performed using nuclear magnetic resonance spectroscopy, chromatography, and mass spectrometry. Third, ultrafast two-dimensional infrared (2D IR) and pump-probe spectroscopy will be implemented to characterize and measure the rates of polariton-mediated vibrational energy transfer within reactive systems. Ultimately, systematically varying coupling strengths and detuning parameters will map out a quantitative relationship between polariton-modified energy flow and reaction outcomes, creating predictive strategies for cavity-modified chemistry. To tightly link this advanced science with workforce development, undergraduate and pre-college students will participate directly in frontier spectroscopy research through structured laboratory programs. These efforts will be further amplified by the launch of a dedicated podcast highlighting new scientific discoveries and the personal narratives of researchers to inspire diverse student populations toward chemistry and photonics careers.